Recent advances in operator-related function theory

bstract:

This conference will focus on recent advances in operator-related function
theory and will be held October 6-8, 2005, in El Escorial, Spain. In
particular, the conference will focus on the topics of geometric function
theory, invariant subspaces, and composition operators which, although
distinct topics, have significant common ground.

Our purpose is to unite researchers in these areas at one meeting, as well
as to bring together people from different areas of the globe. The program
features talks by both senior mathematicians, and graduate students and
young PhDs.